1999 Gordon Research Conference on Atmospheric Chemistry; Newport, Rhode Island; June 13-17, 1999

The PI is organizing a Gordon Research Conference on Atmospheric Chemistry in Newport, RI on June 13-17, 1999. This Gordon Research Conference is one of the major meetings in this field. This year, the conference will cover a broad range of areas in atmospheric chemistry, including the evolution of the atmosphere, chemistry and climate, nucleation processes, chemistry and aerosol formation, heterogeneous chemistry, stratospheric chemistry and transport, the global atmosphere, regional air quality, and convection and global oxidation. The meeting will be attended by both established researchers and young scientists, among them the participants of the preceding Atmospheric Chemistry Colloquium for Emerging Senior Scientists (ACCESS).